Vinyl Isocyanates in Alkaloid Synthesis

The focus of this research is the development of a chiral carbene based on the well-known binaphthalene unit that will be capable of assembling target molecules with high levels of asymmetric induction. Further, a variety of ring forming reactions based on carbene chemistry will be examined with a focus on the preparation of seven-membered nitrogen heterocycles. Cascade processes triggered by nucleophilic carbene additions will also be studied.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. James H. Rigby of the Department of Chemistry at the Wayne State University. Dr. Rigby will focus his work on the development of the chemistry of nucleophilic carbenes and vinylisocyanates as novel participants in the synthesis of nitrogen heterocycles and alkaloids. The project provides an excellent training ground for undergraduate students, graduate students and postdoctoral associates and has potential broader impact for the pharmaceutical industry and for the advancement of medical science.